U.S.-France Cooperative Research: High Energy Hard Scattering and the Interactions of High Energy Partons in Hot and Cold Matter

This three-year award provides support for US-France cooperative research on studies of high-density quark and gluon systems, which are produced in high-energy hadronic and heavy ion collisions. The collaboration involves Alfred Mueller of Columbia University and Dominique Schiff and Gregory Korchemsky of the University of Paris, Orsay. The investigators propose to study the interaction of very high-energy quarks with the dense system in order to understand better the role of quark and gluon jets as probes of hot quark-gluon plasma. In the hadronic case, they will study how unitarity comes about in high-energy, hard collisions. The US investigator brings to this collaboration expertise on high-energy interaction of particles in nuclei. This is complemented by French expertise in finite temperature QCD (quantum chrome dynamics), probes of quark-gluon plasma, and high-energy scattering. The project will advance fundamental understanding in theoretical, high-energy, particle physics.